U.S.-Italy Cooperative Research: Spectroscopic and Dynamic Properties of Solutes in Liquid Crystals

This award will support cooperative research between Professor Richard G. Weiss of Georgetown University and Professors Giovanni Gottarelli and Bruno Samori of the University of Bologna, Italy. The researchers intend to study the influence of liquid-crystalline environments on the order, reactivity, and conformational lability of selected solutes. The data will be analyzed on the bases of solute-solvent length similarities, the proximity of the solute carbonyl to the aqueous interface, and the order of the solvent phase. The order parameters will be measured using linear dichroism and 2H nuclear magnetic resonance. They will develop a comprehensive data set from which details concerning specific solute/ordered solvent interactions may be derived. It should be useful in the design of systems intended to control the rates and selectivities of solute reactions and to limit dopant molecules to pre-selected motions in ordered matrices.